Introduction to Molecular Biology: Continuing Education for Community College Science Faculty

This program will improve the level of undergraduate molecular biology instruction by providing community college faculty with up-to-date information, hands-on training in laboratory techniques, continuing support to facilitate the incorporation of the information into undergraduate courses, and the opportunity to conduct research under the direction of a University of California faculty member.Summer, 1992